Studies of the Cyanide-resistant Respiratory Pathway

9407759 Siedow An "alternative" oxidase is associated with the cyanide-resistant, respiratory pathway found in the mitochondrial electron transfer chain of all higher plants. The role of this energetically wasteful respiratory pathway in plant energy metabolism is unclear, but recent progress has been made in characterizing regulatory, structural and kinetic features of the oxidase. The research outlined in this proposal will focus on three areas that relate to the alternative oxidase's regulation and structure: 1) The involvement of a recently identified sulfhydryl-disulfide redox system in the regulation of alternative pathway activity will be further elucidated. Specifically, the biochemical mechanism involved in the interconversion of the alternative oxidase from the less active, oxidized state to the more active, reduced state will be characterized in isolated mitochondria. In addition, studies of the behavior of this regulatory system in vivo will be undertaken to determine what physiological and/or developmental states affect this sulfhydryl-disulfide system and to establish how this regulation affects the overall capacity of the alternative pathway in vivo. 2) Purification of the detergent-solubilized alternative oxidase will be continued with the specific goals of characterizing both the metal species found in the oxygen reducing catalytic site and the specific nature of the metal site. 31 The ability to functionally express the alternative oxidase in the bacterium Escherichia coli will be exploited to select for mutants of the alternative oxidase that are resistant to inhibitors acting at the quinol oxidation site on the enzyme. Mapping of these inhibitor-resistant mutations will allow refinement of the current model of thequinol oxidation site on the oxidase and provide insights into functionally important amino acid residues involved in catalysis. Only a year ago, regulation of alternative pathway activity appeared to be a simple function of a lternative oxidase protein level and substrate (i.e., ubiquinol) concentration. The appearance of the sulfhydryl-disulfide redox system provides a major new avenue for the in vivo regulation of this energetically wasteful pathway. The work outlined in this proposal will lead to a better understanding of both the mechanism and role of this redox system in the metabolic regulation of the alternative pathway ln vivo. In addition, the alternative oxidase is unusual in that its structure appears to be simpler than that of any other known water-producing oxidase. Given its unique nature, it is important to develop a better understanding of this enzyme's active site, particularly as it relates to the regulation of enzyme activity at the level of ubiquinol oxidation. The studies outlined in this proposal should help to clarify such structural features associated with this enigmatic oxidase. %%% Higher plants possess a respiratory pathway, the "alternative pathway," which is resistant to cyanide, an inhibitor of the standard respiratory pathway common to both plants and animals. The alternative pathway bypasses several sites of ATP synthesis on the standard repiratory pathway, which means that large amounts of potential harvested crop yield may be lost through operation of the energetically wasteful alternative pathway. The role of the alternative pathway in plant metabolism is not known, but possibilities include: 1) serving as a component of the response of plants to environmental stresses such as chilling and 2) acting to keep respiration operating in leaf tissues when photosynthesis is taking place. Crucial to knowing the role of the alternative pathway is an understanding of both the structural features and the regulatory mechanisms of the cyanide-resistant oxidase associated with the pathway. The research outlined in this proposal will attempt to better characterize 1) the catalytic active site of the alternative oxidase with respect to the nature of the m etals found in it and the amino acids involved in the reactions carried out by the protien and 2) the mechanisms by which the activity of the alternative oxidase can be regulated to either enhance or reduce the level of cyanide-resistant repiration taking place under any given set of conditions. Knowing more about the nature and regulation of the alternative oxidase could ultimately lead to less potential yield being lost to the alternative pathway and more efficient crop production. ***